Model theory and o-minimal structures

The proposal addresses problems in model theory of o-minimal structures. The
principal investigator will continue further developing model theory and
analytic geometry associated with o-minimal structures. In developing model
theory of o-minimal structures the principal investigator is planning to use
differential-geometric techniques. In turn the principal investigator hopes
to apply model-theoretic techniques to questions in complex and real
analytic geometries. Model theory of compact complex manifolds has had
remarkable success in the recent years and the proposer plans, among the
other things, to extend these advances, using methods developed by him and
his collaborators.

The proposal is in in a branch of mathematical logic called model theory.
Model theory studies mathematical structures by considering the first-order
sentences true in those structures, and the family of alternate structures
that also satisfy all of those first-order sentences. (Sentences in logic
are built out of a small repertoire of elements and constructions.
"First-order" refers to the number of quantifiers in a sentence, a measure
of complexity.) In many cases these alternative structures illuminate some
properties of the original mathematical objects.
A good example is the non-standard analysis. A part of this proposal is an
extension on ideas of non-standard analysis to complex-analytic functions.